Cosmic Rays and the Interplanetary Magnetic Field

The long, uninterrupted time series of cosmic ray observations recorded by neutron monitors is an invaluable resource for the study of secular and periodic variations of cosmic rays, the sun, and the interplanetary medium. These data, together with measurements of heliospheric particles and fields acquired in situ by spacecraft, allow us to perform rigorous observational tests of charged particle acceleration and transport, thus pointing the way to improved theoretical descriptions of this fundamental process of Solar Terrestrial Research. In addition, the cosmic rays can often be regarded as test particles and, as such, can be treated as remote probes of the interplanetary medium in regions that are otherwise unsampled. With appropriate analysis, particle observations can be used to derive information on the interplanetary magnetic field that would be difficult or impossible to obtain by other methods. This grant will support a broad-based program of theoretical and observational research on cosmic rays and their interaction with the magnetic fields of the sun and solar wind. Included is the continued operation of the Thule and Newark neutron monitors through the upcoming solar maximum to mid-1992. Specific study tasks include (1) particle scattering near 90o pitch angle in dissipative, dynamic turbulence, (2) magnetic helicity effects in solar particle transport, (3) solar energetic particles and their long term variability, (4) the three-dimensional structure of interplanetary magnetic turbulence, as revealed in cosmic ray measurements, (5) dependence of the cosmic ray diurnal anisotropy upon the sun's magnetic polarity (the "twenty year wave"), and (6) the sunspot cycle and solar magnetic cycle variation of the cosmic ray gradient. The overall aim is to use energetic particles to probe the earth's natural electromagnetic environment.